A Workshop on Future Technologies and Research Directions in Dynamic Analysis, Measurement and Control of Intelligent Systems

9529383 Shoureshi The "NSF/NIST/EPRI workshop on New Directions in Intelligent Systems" to be held at the NIST facilities located in Gaithersburg, MD, from June 10 to June 12, 1996 brings together leading industrial representatives, scientists and engineers who have made pioneering contributions in the general areas of dynamic system analysis, measurement, and control of smart engineering systems. In particular, the industrial leaders focus their discussions and presentations on identifying the future needs in the areas of intelligent systems, including their architecture and their components such as computers, controls, sensors and actuators. The researchers from the academe and the national laboratories analyze the needs of the industry and define research directions which would enable the industry to meet the challenges of the 21st century. The support for the workshop is provided by the National Institute of Standards and Technology (NIST), the Electric Power Research Institute (EPRI) in addition to the National Science Foundation (NSF).***